SGER: A Search for Prompt Radio Counterparts to Gamma Ray Bursts

9414310 Taylor About once each day the BATSE experiment on the Compton Gamma Ray Observatory measures a sudden short burst of energetic radiation. The source of these gamma ray bursts is completely unknown. Detection of bursts at radio wavelengths in addition to gamma energies would provide a great deal of information on the sources. The PI will attempt this using an automated radio telescope which can search for a burst within five seconds of its detection by BATSE. ***